Development of Circular Dichroism Methods to Study RNA-Metal Interactions

This starter grant award of the Special Projects Office of the Chemistry Division supports the research of Professor Andrew L. Feig at Indiana University. The theme of the research is the development of a new methodology for observing metal binding to nucleic acids based on circular dichroism spectroscopy. In particular, the role that Mg2+ ions play in RNA biochemistry will be examined. Spectroscopic examinations of two small RNAs will be compared to kinetic studies that have probed metal binding.

Metal binding to RNAs is essential for biological activity. One of the applications of this project is insight into the mechanisms of RNAs with catalytic activity. Ultimately, the methods developed here can be used to study a wide variety of structural changes and other dynamic processes in proteins and nucleic acid molecules.